EAGER: Collaborative Research: Bleaching phenotypes of acute vs. chronic coral bleaching susceptibility and resilience: towards a standardized coral resilience diagnostic

The past few years have seen an unprecedented amount of coral bleaching across the globe. Global bleaching events in 2015-17, severely impacting iconic coral reefs in places such as the Great Barrier Reef, Micronesia, Hawaiian Islands, and Caribbean, were the worst recorded in recent human history. When ocean temperatures rise, the symbiosis between reef-building corals and their photosynthetic algae deteriorates, many times resulting in widespread coral die-offs as corals can starve without their symbiotic partners to supply food. These widespread events can have drastic impacts on ocean health and biodiversity, as well as the communities that depend on reefs for fishing, tourism, and protection from storms. Importantly, some corals resist or recover from bleaching better than others. Such variability in coral response to ocean warming could be critical to reef survival in the future, yet the scientific community lacks any standardized diagnostics to rapidly assess bleaching tolerance limits. Here, we plan to: 1) develop a standardized, short-term exposure to assess bleaching limits (analogous to cardiac stress tests for humans), 2) design an experimental system capable of delivering a range of thermal treatments as an open-source, low-cost, highly-portable device that can be readily adapted for bleaching tests in a wide variety of coral habitats, and 3) disseminate the results, instructions, and technologies to the reef research and conservation community through a combination of hands-on workshops, online outreach materials, press releases, and open-access research publications. Widespread dissemination of project products will be achieved via hands-on demonstrations and workshops in key geographic areas (Middle East, Caribbean, and Indo-Pacific), with a focus on the assembly of the system and operation of the experimental assay using local corals. This project will train both graduate students and a postdoctoral researcher, and brings together a team of national and global researchers in a collaborative investigation to address the international problem of coral bleaching.

With each passing year, coral bleaching has shifted from an issue of serious sporadic concern to a critical widespread threat to reefs across the globe that is increasing in frequency and severity. However, during widespread bleaching events, some scattered corals and reef sections are able to survive better than others. Whether this is due to acclimatization or adaptation in thermal stress tolerance, this variability in response is critical to coral resilience to climate impacts. Currently, the scientific community lacks a standardized approach to rapidly assess coral thermal limits and identify resilient individuals or populations. Present day approaches range from observational surveys of natural bleaching and mortality, to multiple weeks of controlled chronic thermal exposure, to rapid, single or multi-day acute heat shocks. To what degree bleaching response varies across short-term versus longer-term experiments and how these responses compare to natural bleaching patterns is largely unknown. Using a group of coral species representative of a historical range of bleaching susceptibility (e.g., Acropora hemprichii, Pocillopora meandrina, and Porites lobata), research will address this important knowledge gap by experimental evaluation of the bleaching response to acute (0 - 2 day) versus chronic (>4 week) thermal stress. The overarching questions for this study are: how are the acute and chronic coral bleaching responses related, and can investigators predict ecologically relevant bleaching outcomes from the response to a short-term, acute heat-stress? To answer these questions, the research team will: 1) objectively compare acute versus chronic heat-stress exposures and synthesize a variety of response metrics based on core physiological measurements to develop a standardized, short-term thermal assay and diagnostic approach to rapidly assess bleaching, 2) operationalize an experimental system built around an open-source, cost-effective, easily transportable temperature control technology, and 3) distribute the results, experimental procedures, and temperature controlling technologies to the reef research and conservation communities. This project will produce an affordable experimental system and short-term diagnostic capable of determining coral thermal limits in just a few days in almost any location with reliable access to seawater and electricity or a portable generator. The research fills a critical knowledge gap through the development of a standardized set of diagnostic tools to assess coral thermal vulnerability before widespread bleaching events actually occur, so that proactive conservation and management strategies can be implemented ahead of widespread impacts to reef ecosystems.